U.S.-Japan Cooperative Research: Specification and Development of Prototype Instruments for the Japanese National Large Telescope at Mauna Kea

This award will enable Prof. Donald N. B. Hall and co-workers at the University of Hawaii at Manoa to collaborate with Prof. Yoshihide Kozai, of the Japanese National Astronomy Observatory, Mitaka, Japan, and colleagues over a period of two years. They will jointly develop and verify concepts for optical and infrared spectroscopic instrumen- tation for the planned Japanese 7.5 meter telescope--the Japanese National Large Telescope--to be constructed in the early 1990s on Mauna Kea, Hawaii. The proposed telescope will be one of the most powerful on earth, and will justify the development of highly sophisticated optical/infrared spectroscopic instrumentation to be used in conjunction with it. As part of the site agreement, the University of Hawaii will have access to 15% of the observing time. Astronomers at the University are thus anxious to collaborate with the Japanese in design decisions for the telescope and its associated instrumentation. This award will facilitate that collaboration. In developing these instruments, the Japanese researchers will contribute the high-efficiency optical elements, e.g., lenses, fiber light-transmission systems, and coatings, while the U.S. side will contribute to development of two-dimensional array electronic detector systems. Instrument concepts developed will be verified on the 2.2 meter telescope of the University of Hawaii.